Modernization of Chromatographic and Electrophoretic Instrumentation in Biology and Chemistry

The recent acquisition of high performance liquid chromatography, gas chromatography, and electrophoresis instrumentation together with appropriate computer interface systems is being used to improve undergraduate laboratory instruction in fifteen courses in the Departments of Biology and Chemistry. In addition, the instrumentation is being used extensively in individual student research projects. This allows students from these departments to become familiar with the use and applications of modern chromatographic and electrophoretic instrumentation, including the increased efficiency of data collection and analysis which can be accomplished through computer interfacing.